PostDoctoral Research Fellowship

This award is made as part of the FY 2021 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Jocelyn Chi is "Provable Randomized Algorithms for Scaling Multivariate Statistical Methods for Analyses of Massive, Complex, and Structured Data." The host institution for the fellowship is University of California, Los Angeles, and the sponsoring scientist is Deanna Needell.